An Undergraduate Network and Distributed Processing Labora- tory.

A local area network of sixteen IBM PC/AT compatible machines will be set up in the telecommunication engineering technology program. The use of local area networking and distributed processing, two emerging technologies, will be taught to engineering technologists.